Lee College Physics Laboratory Project

The main goal of this project is to improve the learning, retention, and application of physics concepts and principles by students enrolled in physics classes at Lee College. This is being accomplished by introducing a series of new experiences in the laboratory utilizing microcomputer-based laboratories, activities, and new experiments in mechanics. These laboratory experiences are in the areas of kinematics, forces, rotational motion, energy, and simple harmonic motion. Using some of the MBL results of Thornton and Laws with some results done at Lee College, a new laboratory curriculum is being developed that is integrating new technologies with proven activities and experiments. Microcomputers are being used to perform data collection, analysis, and graphing; and are being used to construct, execute, and display physical simulations in mechanics.The support is provided for software and hardware for six, networked, color Macintosh IIsi workstations equipped with a Universal Lab Interface with appropriate sensors and probes. Support is also provided for a laser printer, CD reader, scanner, and some laboratory equipment.This project is encouraging students to continue study in physics or to support science by improving their experiences in physics, to increase science literacy, to help prepare Lee College's physics courses for the next century, and to stimulate other two-year and four-year colleges to adapt this approach for their needs.